CT-ISG: Improving System Security with a Compiler-based Virtual Machine for Operating System Kernels

The Secure Virtual Architecture (SVA, formerly called LLVA for
low-level virtual architecture)
project is developing a novel framework to improve operating
system security and reliability. The two broad goals of the
project are (a) to develop a compiler-enforced virtual machine
that is safe, low-level, efficient, and capable of hosting a
standard C/C++-based operating system and all its applications;
and (b) to investigate how this organization can improve overall
system security and provide new security capabilities. The SVA
approach will provide important capabilities not currently
available for widely-used commodity systems, including a ""safe execution
environment,"" inescapable logging of kernel activity, and a
purely software approach to keep application data secret even
from the underlying operating system. The software tools developed
under this project will be made available to the research and education
communities in operating systems and security.